Achieving Program Interperability Using Domain-Specific Languages

The planning project permits the Principal Investigator to participate in activities for developing a competitive research project in programming languages. In particular, the Principal Investigator participates in national and international conferences to learn about results from new research in
theoretical and applied aspects of programming languages. The Principle Investigator is using this knowledge to conduct preliminary research for determining the effectiveness of using domain-specific languages for program interoperability. Program interoperability allows one program to use the services of another program automatically. The preliminary research focuses on developing the formal semantics of a meta-language for domain-specific languages and implementing a prototype of a software tool for rapidly developing interpreters of domain-specific languages.